Analysis of Interannual Variations in the Upper Ocean Heat Transport and Storage in the Western North Atlantic Ocean

0095688/Kelly

This project will analyze the transport and storage of heat in the upper
ocean in the western North Atlantic. A particular effort will be made
to determine the interannual variability of these quantities and
identify the mechanisms responsible. The project will be based on
historical data and use both in situ measurements and satellite-derived
surface fields. The work will examine the roles of both surface
buoyancy forcing and advective heat transport, focusing on the Gulf
Stream and the adjacent recirculations. Goals include developing a
better understanding of the relations between variations in circulation
and in sea-surface temperature, in sea-surface height and in heat
storage, and between anomalies in heat storage and in sea-surface
temperature. The work will provide a better understanding of an
important part of the climate system, the transport of heat between low
and high latitudes by the ocean in the North Atlantic. It will also
provide an observational baseline against which ocean and climate models
can be tested.